MRI: Acquisition of a Parallel Computing and Visualization Facility to Enable Integrated Research and Training in Modern Computational Science, Mathematics, and Engineering

This award provides funding for the acquisition of critically needed
computational and visualization equipment in support of UCSD's recently
launched Computational Science, Mathematics, and Engineering (CSME)
Doctoral Program (http://csme.ucsd.edu/). The expenditure will
be highly matched (thirty percent) by the University of California, by
both funds and infrastructure. The resulting CSME training facility will
provide direct access to CSME students for design of effective computational
strategies, development of methods tuned to large parallel environments,
and testing of code efficiency (scalability) on a meaningful-sized computer.
The CSME program offers integrated research and training in the modern
tools of computational science. The objective of the program is to address
the essential need to produce the next generation of scientists that will
provide the solutions to the major problems of our time: climate change,
anthropogenic pollution, and energy diversity as well as continue the
quest for the understanding of fundamental problems of physics, chemistry
and biology. This CSME facility will also provide benefits to the broader
UCSD computational science community by providing a focus for many similar
computational research programs on the campus. The CSME Program is based
in the Center for Computational Mathematics (CCoM) at UCSD
(http://ccom.ucsd.edu/), and directly involves faculty from five core
academic departments (mathematics, chemistry, computer science and
engineering, mechanical and aerospace engineering, and physics), and also
involves in a less direct way nearly all major science and engineering
units at UCSD.